Studies of Nuclear Structure and Nuclear Processes at Intermediate Energies

Indiana University's Cyclotron Facility (IUCF) provides experimental resources for conduct of fundamental research in intermediate energy nuclear physics with light ions, utilizing a 200 MeV cyclotron and a 500 MeV Cooler ring. IUCF is a national user facility, serving over 240 researchers. The central research thrust is polarized proton and neutron scattering, and is aimed at the study of nuclear structure, effective nucleon-nucleon interactions in nuclei, few body systems, threshold pion production, pionic atoms, and more. The core of the cyclotron research program is in charge exchange studies and inelastic proton scattering, both with polarized beams, and makes use of a high resolution magnetic spectrometer with focal plane polarimeter and of a neutron time-of-flight facility. The Cooler program is used in the study of threshold pion production, pionic atoms, dibaryon searches, nuclear structure with recoil particle detection, accelerator physics of spin transport, polarized few-nucleon gasjet targets, and more. Instrumentation development in support of the research program and of users is an essential function at IUCF, and includes development of such items as specialized spectrometers, polarized targets, detectors, beamline apparatus, polarized ion sources, and related equipment. Graduate students are integrated into all aspects of IUCF research, including equipment development, and their training is a prominent aspect of IUCF activities.